Salvaging the Anchoring and Adjusting Heuristic

What is the likely price of the Dow next year? How long can the
patient expect to live? How many lives are likely to be lost in a
looming military campaign? Questions such as these confront decision
makers every day. The proposed research seeks to understand, and
ultimately improve, the precise psychological processes by which such
judgments are made. Often such judgments are made by adjusting from
some initial starting point. The Dow is at 10,500 right now, so one
might estimate it will be at 11,000 next year. The last patient with
the same symptoms lived for 6 months, so one might estimate a
survival time of one year. Psychologists, economists, and marketing
scholars have investigated such "anchoring and adjustment" processes
during the past twenty-five years and have found that a person's
ultimate judgment tends to be too close to the initial value-i.e.,
the initial value serves as an "anchor" that biases the ultimate
judgment.

The present research seeks to build on existing knowledge of
anchoring and adjustment processes by pointing out (with empirical
justification) an important misunderstanding in the current
literature. The proposed experiments are designed to show that the
psychological processes invoked by real-world problems like those
above are quite different from those invoked in the standard
paradigms used to investigate anchoring and adjustment. Real-world
problems like those above involve explicit adjustment from the
initial value; the standard anchoring paradigm involves simple
priming of anchor-consistent information. By directing the field to
the true source of anchoring effects in real-world contexts, the
proposed research promises to point the way to strategies that can be
used to improve the accuracy of important real-world forecasts.